An Annual National Organometallic Chemistry Workshop

This award from the Inorganic, Bioinorganic and Organometallic Chemistry Program will support an annual workshop in organometallic chemistry. The participants in the workshop will be organometallic chemists from industry and academic institutions, as well as from private and government research organizations. The goals of the workshop are to facilitate communication among researchers in the different kinds of organizations and to foster the exchange of new ideas much earlier than is possible through formal publications. The format of the workshop is designed to encourage maximum participation by all attendees, and the plan for choosing attendees will ensure broadly based participation. The topics to be discussed at the workshop will span a broad range from synthesis of new organometallic compounds to the utilization of such compounds as catalysts or as precursors for making new materials.